RIA: Run-to-Run Process Control System for Semiconductor Manufacturing

The project is aimed at developing a run-to-run process control system for quality enhancement of semiconductor manufacturing process. Based on post-process and in-situ measurements on product wafers, low order polynomial process models are suggested as a way of adjusting recipes that can increase the process qualities with minimal disruption to the production process. The proposer has demonstrated some of his methodology in industrial applications.